Supercritical Fluid based Polymer Nanoparticles for Biomedical Applications

Proposal Number: CTS-0219271
Principal Investigator: Gupta, Ram B
Institution: Auburn University
Title: Supercritical fluid based polymer nanoparticles for biomedical applications

ABSTRACT

The PI has enhanced the supercritical antisolvent (SAS) process for micron sized particle formation by including an ultrasonic transducer in the precipitation vessel to interact with the solvent jet creating mush smaller particles in the sub-micron range. The technique is innovative and further knowledge of the fundamental mechanism of operation would provide the information to optimize the method.